Instrumentation in the Microscale Organic Laboratory

Instrumentation appropriate for use in a microscale organic laboratory has been recently acquired by the Chemistry Department at Stetson University. This includes toploading electronic balances for rapid and accurate weighing of milligram quantities, an infrared spectrophotometer for identification of small quantities, a recorder for a gas chromatograph to provide rapid analysis of volatile samples, and a refractometer for rapid assay of liquid fractions. Conversion of the laboratory to microscale increases student efficiency in laboratory operation, permits more sophisticated laboratory reactions, increases the number of experiments, increases the interest in and retention of principles, markedly cuts the annual expense for chemicals and glassware, and decreases laboratory air pollution and the amount of toxic chemical waste disposal.